National Workshop on the Role of the Faculty in Meeting the National Need for African-American, Latino, and American Indian Scholars

National Workshop on the Role of Faculty in Meeting the National Need for Minority Scholars. The primary goal of this workshop is to delineate the role of graduate university faculty in increasing the number of minority scholars. The impetus is the statis in minority enrollment in graduate school. Faculty members play a pivotal role in producing scholars through recruitment, financial aid, mentoring and guidance, all essential to academic success. The vehicle is a national invitational workshop where specific courses of action will be identified by 75-100 participants representing academia, industry and government. Proceeding will be widely publicized and outcomes will be assessed. A national advisory committee will aid in the implementation of workshop recommendations. The focus on faculty roles is timely and the planned follow-up activities are unique and should aid in the distribution and implementation of findings.